Support for Computational Mathematics Collaborative Researchin Puerto Rico

The Computational Mathematics Programs of the University of Puerto Rico in Rio Piedras and Mayaguez has had a tremendous research upsurge in recent times. For example, the Rio Piedras Mathematics Department has moved from being in 1984 in the last position in number of publications per researcher of all the Departments of the Faculty of Natural Sciences in Rio Piedras, to being in 1988 in the second position of all Science Department of the campuses of the University of Puerto Rico in such number of publication. Also the Research Funds have increased 13 times from $100,000 for the period 1974-84 to $1,300,000 for the period 1984-1989. Further a new BA in Computer Science has been approved by the academic senate to be included as one of the options we offer. The main objective of the present proposal is to further raise the competitive level of our Department through a program of collaborative research with highly competitive mainland researchers. On the other hand we intend to increase minority participation in research through a local collaborative program of research with our four year colleges. Last, the University of Puerto Rico, Rio Piedras and Mayaguez Campus, will expand the Mathematics Graduate Program to include a joint doctorate in Computational Mathematics. It will carry this out via a collection of coopering institutions, from the local to the national level. With the cooperative assistance of national research institutions, this program will train faculty and professionals to serve the needs of local and national colleges and industry, and will greatly expand their growth potential in Puerto Rico along new lines.